A Research-Based Electromagnetics-Circuits Curriculum for Giga-Scale Microelectronics

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, entitled, "A Research-Based Electromagnetics-Circuits Curriculum for Giga-Scale Microelectronics," at the University of Washington, under the direction of Dr. Vikram Jandhyala. The overall objective of this project, which aims at a dramatic paradigm shift, is to combined electromagnetic (EM) and circuits principles in a unified, hierarchical manner in order to target high-technology areas.